Mathematical Sciences: Multivariate Spline Approximation & Multivariate Polynomial Interpolation

In this project the principal investigator will pursue two complementary areas in numerical analysis and approximation theory, namely, multivariate spline approximation and multivariate polynomial interpolation. With regard to the first area, the principal investigator will continue his study of multivariate splines on regular and irregular meshes. He will also look into the connections between splines and radial basis functions and wavelets. With regard to the second area, the principal investigator will further expand his recent discovery of a simple and general method of choosing, for a given finite set of points in s variables, a "good" polynomial space for interpolation at those points. Many problems in differential equations and approximation theory require the use of numerical algorithms to construct accurate representations of functions. Many of these algorithms have developed out of theoretical work on the kinds of basis functions that can be used to represent functions at a set of discrete points. Basis functions are in a very real sense the "building blocks" out of which continuous functions are created. In this project the principal investigator will study basis functions called "splines" that are very useful for solving problems in a number of applied areas.